Improvement of Reliability of Electronic Subsystems

The Research Improvement in Minority Institutions (RIMI) program was designed to increase the participation of minorities in scientific and engineering research. The program provides support to strengthen the research environments and capabilities of institutions that have substantial minority student enrollments. Eligible institutions must also have graduate programs in science or programs in engineering. The principal investigators at the New Mexico State University will use RIMI support to evaluate electromagnetic interference and electric cross-talk problems between adjacent leads on microchip surfaces. Researchers will also develop computer-aided experimental (CAE) tools to do efficient electronic packaging. The proposed research will use various analytical, numerical, and experimental procedures that will enable design engineers to recognize and correct potential packaging problems. This project on methods to improve the reliability of electronic systems will strengthen the research infrastructure of a productive institution that educates students at the cutting edge of science. The principal investigator is a young and talented minority who has started a very promising research career in the field of electrical and computer engineering. He has completed training at the White Sands Missile Range specializing in Analog to Digital Interface Systems that are used in radar. As a result of this RIMI project, more minorities students will have the opportunity to select careers in science and engineering.